Mathematical Sciences: Computational Methods in Algebraic Geometry and Topology

9501723 Bayer This awards supports the research of Professor D. Bayer to work on methods for computing in both algebraic geometry and topology. In algebraic geometry he will focus on the connections between toric varieties and integer programming. In topology he will study methods to compute on 3-manifolds. He hopes to use the interplay between topology and algebraic geometry such as the interpretation of the Haken normal surface as a Hilbert basis for a polyhedral cone. Finally he proposes to develop virtual reality software for direct manipulation of 3-manifolds. The research starts out in algebraic geometry and then moves on to topology. Both are among the oldest parts of modern mathematics, but both have blossomed to the point where they have, in the past 10 years, solved problems that have stood for centuries. Originally, Algebraic Geometry treated figures defined in the plane by the simplest of equations, namely polynomials. Today, the field uses methods not only from algebra, but also from analysis and topology, and conversely it is extensively used in those fields, but it has applications to many areas of engineering as well. The research supported in the present proposal shows the importance of this once purely theoretical area for robotics and manufacturing. Topology studies the properties of objects that are invariant under transformations that do not tear the surface. It is extensively used in such areas as Physics and Chemistry where the shapes of objects are fundamental to determine their properties. ***